Joint U.S.-Italy-Yugoslavia Research on Evaluation & Retrofit of Masonry-Infilled Reinforced Concrete Frames

This project is a travel grant for two researchers to attend/participate in a planning meeting to establish the analytical and experimental procedures and data to be obtained for a full scale experiment of a masonry infilled reinforced concrete frame building. The research results will be very beneficial to the engineering professionals and researchers.